Doctoral Dissertation Research in Geography and Regional Science

Research on Holocene landscape evolution in the Mediterranean region concerns the relative impact of climate change and human activity on episodes of erosion and valley alluviation. The complex nature of geomorphic response to climate change often results in differing landscape adjustments to a given stimulus within a single drainage basin, resulting in temporal lags in certain portions of the basin as the system progressively adjusts to the new conditions. Because the character and intensity of anthropic disturbances vary spatially and temporally, geomorphic responses to these stimuli are typically asynchronous and more variable. One approach to assessing causality is to conduct tandem studies in several different basins which have been subject to different types and intensities of cultural activity while experiencing similar shifts in climate. This project addresses the overall question of late Quaternary landscape change in southern Italy by examining the stratigraphy and sedimentology of alluvial and colluvial deposits in six drainage basins. It will integrate geomorphic, sedimentologic, and pedological evidence with regional paleoenvironmental, archaeological, and historical data in order to generalize about the nature and timing of landscape change. Sediment data will be collected in the field, and they will be augmented by laboratory analysis and aerial and topographic map analysis to determine the causes of landscape change. Results of this research will add new knowledge on the regional geomorphology of the Mediterranean region, and it will establish the relative importance of climate and human causative factors in the evolution of the landscape during the late Quaternary.